A Multidisciplinary Workshop: Self-Assembling Peptide Systems in Biology, Engineering and Medicine, July 1-6, 1999 in Crete, Greece

Zhang
9906675
A Multidisciplinary Workshop:
Self-Assembling Peptide Systems in Biology, Engineering and Medicine

A workshop on self-assembling peptide systems will be held from July 1 through 6, 1999 in Crete, Greece. The purpose is to provide a forum for interaction between scientists from Biology, Engineering and Medicine to meet and exchange ideas and experiences on the study of peptide self-assembly. While speakers are drawn internationally, their expertise ranges from protein/peptide chemistry, biotechnology, material science and medicine. A number of these speakers are current NSF awardees. Approximately 150 participants are expected, including graduate students and postdoctoral fellows. The workshop should have an impact on the promotion of further collaboration between disciplines and advancing the knowledge and application of this and related topic areas.